New Approaches to Maass Wave Forms in Mathematics and Physics

The discrete spectrum of the Laplacian on the
modular surface and the associated eigenfunctions
(called Maass wave forms) are an interesting and basic
class of functions which nevertheless remain mysteriously
elusive fifty years after their discovery. While numerical
approximations exist, concrete analytic information is
somewhat scarce; in particular, at present no explicit
constructions exist for any of these eigenfunctions. These
mathematical objects are of interest in such seemingly
diverse fields as number theory in mathematics and dynamical
systems, statistical mechanics, and quantum chaos in
theoretical physics. The starting point for this project is
a new class of functions equivalent to the Maass forms, called
period functions in analogy with the period polynomials
associated to the classical modular forms of integral weight.
These functions, discovered by the investigator and developed
individually and more recently in collaboration with D. Zagier,
are holomorphic and satisfy a simple functional equation, and
so appear to be simpler class of mathematical objects than the
Maass forms themselves. For this reason, and because the
development of their algebraic structure leads in a number of
different interrelated and intriguing directions, they show
promise to continue to shed new light on this basic problem.
Their further development and the extension of these results
to general subgroups, using representation theory and cohomology
of groups, are the main goals of this project. In addition,
connections between period functions and certain equations which
arise both in the study of transfer operators for dynamical
systems and in the study of spin-chain partition functions in
statistical mechanics are already under study by several
researchers, including one working group in Germany which
is specifically investigating these questions. The applications
of Maass period functions to these related areas of theoretical
physics is thus also a focus of this work, to be pursued including
discussions with researchers working on these problems.

Research in mathematics and related theoretical physics will
use methods developed by the investigator and his colleagues to
gain more concrete and explicit information about Maass wave forms.
These functions are one type in a class called "modular forms"
which has many applications in such diverse fields as number theory,
physics, and cryptography (or code making and breaking). Maass wave
forms in particular are the non-Euclidean version of the sine waves
(or pure tones - the wave form produced by striking a tuning fork)
in ordinary space, which are the basic components out of which all
shapes are built. The study of geometry and physics in this non-
Euclidean "parallel universe" has provided science with a rich source
of new ideas, as well as a contrasting proving ground on which to
sharpen ideas in the geometry and physics of the space we live in.
For example, the study of the behavior of Maass forms provides very
useful insights in the quest to gain a deeper understanding of the
conditions under which a physical system will exhibit regular or
chaotic behavior, an important and pervasive question in physics.
Maass forms have proven mysteriously hard to construct explicitly,
and continue to be under active investigation fifty years after
their discovery.